CPS: Small: Enhancing Cybersecurity in Remote-Controlled Robots Using Depth-Compressed Encrypted Adaptive Control and Virtual Trip-Wire Overflow Traps

As remotely controlled and cloud-connected physical systems become foundational to critical infrastructure, spanning industrial automation, unmanned vehicles, and advanced manufacturing, their exposure to cyberattacks poses growing threats to national security and public safety. These systems transmit sensor measurements and control commands across communication networks, and malicious actors can exploit these pathways by intercepting signals, altering them to evade detection, and reintroducing falsified data to cause hazardous physical behavior. This project develops a security framework that protects remotely controlled systems by performing all control computations directly on encrypted data, while embedding a formally characterizable detection mechanism that identifies adversarial intrusions by exploiting fundamental properties of the encryption process itself. The research addresses an urgent unmet need in cyber-physical system security. The project will train graduate students at the intersection of control engineering, cybersecurity, and cryptography, foster international research collaboration, and disseminate findings through peer-reviewed publications, engineering workshops, and public outreach.

This project develops a unified defense framework against false data injection attacks in networked cyber-physical systems by integrating two complementary mechanisms: a depth-compressed encrypted adaptive controller and a probabilistic virtual overflow trap, both realized through somewhat homomorphic encryption, a cryptographic technique permitting arithmetic computations directly on encrypted data without decryption. The central challenge is that encrypting adaptive control algorithms causes rapid accumulation of computational noise with each arithmetic operation, eventually causing decryption failure known as overflow. The first objective resolves this by restructuring the Model Reference Adaptive Control law through algebraic circuit rewrite rules that halve the algorithm's multiplicative depth, making real-time encrypted control feasible. The second objective converts this managed noise budget into a security asset: legitimate operation remains below the overflow threshold, while adversarial signal manipulations of sufficient complexity inevitably exceed it, triggering attack detection with probability converging to one within a relatively small number of control cycles. A three-node international experimental testbed provides empirical validation and will be shared with the research community upon project completion.